Access to Cooperative Education Programs and the Academic and Employment Returns by Race, Gender, and Discipline

A cooperative education program (co-op) in engineering is a partnership between an academic institution and an employer designed to engage students in practical engineering experience through rotations of full-time employment and course study. Co-op employment provides students with discipline-relevant professional experience and early entry into the engineering labor force while serving as a recruitment tool for co-op companies. While much is known about the value of cooperative education programs, relatively little is known about why there are different rates of participation by race/ethnicity and how recruitment and pre-screening practices influence the diversity of students who participate in co-op programs. The objectives of this research project are to identify factors that influence student access to cooperative education programs and to determine the educational and employment returns associated with participation. Data include comprehensive longitudinal academic student records from multiple institutions, as well as surveys and interviews of students from a large research-intensive institution. Research findings will lead to the development of strategies to further enhance co-op recruitment and engagement of engineering students from a broader range of backgrounds, interests, and experiences as a pathway to increase the overall diversity of the professional engineering labor force.

This research is supported by the Research in Engineering Education Program of the Engineering Education and Centers Division.